A Telecommunications Laboratory

The Telecommunications Laboratory is a multi-use state-of-the-art undergraduate teaching facility designed to be both flexible and powerful. The controlled workstation and computer communications facilities allow undergraduate students an opportunity to apply and integrate classroom knowledge in communications, signal processing, computer architecture, and algorithm and software development via a set of practical experiments. Students are exposed to state-of-the-art computer communications systems, on which they can implement everything from modern digital communication and signal processing algorithms to parallel algorithms and real-time databases. State-of-the-art computer software provides the undergraduate students modern models of quality software, as well as allows them to design and build sophisticated software/hardware systems. This laboratory significantly impacts many of the University of Oklahoma undergraduate students in both the School of Computer Science and the School of Electrical Engineering. Many of these students will take positions with organizations in the telecommunications/ computer industry, where these skills and experiences will be greatly valued.